Transition State Dynamics of Unconstrained Bimolecular Reactions

Marcos Dantus is supported by the Experimental Physical Chemistry Program to study the ultrafast transition state dynamics of unconstrained bimolecular reactions. The primary goal is to gain significant insights into fundamental photoassociation reactions in order to understand better the breaking and formation of chemical bonds in collision processes. Specific projects include real-time dynamical studies of Hg + I2 and Na + HF bimolecular reactions, controlling the impact parameter in photoassociation, and exploring the dependence of photoassociation on the initiating laser pulse characteristics.

Light absorption by a pair of unbound atoms or molecules while they are in proximity can lead them to react to form a new chemical bond. This process is called photoassociation. Outcomes from this research effort will lead to the elucidation of previously unmeasurable aspects of bimolecular chemistry, such as reaction dependence on closeness and orientation of colliding atoms and molecules. This understanding could impact studies of reactions relevant to combustion and atmospheric chemistry, for example. This research program also provides unique education and training opportunities for students at Michigan State University.